RUI: Sponsored Membership in Internet2 for Mount Holyoke College: Applications and Network

The proposal plans to connect Mount Holyoke College to the University of Massachusets and then to the Abilene Network for the purpose of advancing research in the areas of fish embryo biology, remote sensing and remote supercomputing for physics.